Practical Privacy Preserving Technologies

Privacy is an important concern in the digital age, yet the adoption
of privacy preserving technologies has lagged behind that of other
security technologies. This is, to a great extent, due to the lack of
practical, usable privacy preserving technologies. The wide adoption
of confidentiality and integrity technologies was triggered by a few
practical software tools, such as SSL and SSH. By contrast, practical
privacy preserving technologies still face considerable challenges.

The goal of this project is to develop two practical privacy
preserving technologies, which serve as a case study on unique
requirements and pitfalls of privacy preserving software.

Privacy preserving computation: Generic techniques are close to
practical for some functions of interest, but a tantalizing gap still
remains for many applications. The practicality gap widens further if
malicious adversarial behavior must be tolerated. This project focus
on new efficient methods to protect against malicious faults,
retro-fitting at the algorithmic level to gain new efficiencies at the
cryptographic protocol level, and new efficient methods to facilitate
the ongoing storage and processing of privacy-sensitive data.

Off-the-record communication: This project will design protocols for
off-the-record communication between group members. Each member can
verify the identity of the sender and ensure the confidentiality of
the message, but no subset of group members may conspire to implicate
the sender to any third party.

Broader impacts of this project are to inform the general public that
privacy is not a lost cause in the digital age, and to create public
appreciation and support for applied cryptography research.